Southwest Center for School Science Reform

This project is designed to implement the NSTA Scope, Sequence, and Coordination model for science education reform in the Houston Independent School District and the Conroe Independent School District. With funding from the U.S. Dept. of Education, preliminary work has already been done in the Houston School District at the 7th grade level; the current project extends through the 11th grade and focuses on program development, teacher training, field testing, and demonstration of grade level models. In addition to working closely with NSTA, the Baylor College of Medicine joins with Rice University and the University of Houston in a consortium approach to this project. Cost sharing in the amount of $310,292 is 23% of the NSF contribution.